Conference: Zone of Convergence: Our Changing Planet

Scientists at Associated Universities incorporated (AUI) will host a collaborative, hands-on conference that will bring together researchers, educators, policy makers, indigenous and philosophical knowledge holders, to understand convergence science, and empower new collaborations in areas of global need, such as climate change. The conference will be multi-disciplinary in nature and will include topics in earth and space science, astronomy, and data science.